Conformally Invariant Partial Differential Equations

Abstract

Award: DMS-0604346
Principal Investigator: Aobing Li

Projects supported by this award emphasize conformally invariant
partial differential equations, including a fully nonlinear
version of the Yamabe problem that seeks a Riemannian metric with
constant scalar curvature in a prescribed conformal class, and a
fully nonlinear version of the boundary Yamabe problem. Some
other directions of research include an extension of inequalities
of Trudinger-Wang on the Hessian measure, and a problem on the
variational nature of the symmetric curvature functional for
manifolds that are not locally conformally flat.

Euclidean geometry provides measurements of both lengths of lines
and of angles between pairs of lines, and much of modern geometry
depends upon being able to make both of those measurements
locally. Geometers describe a change of coordinates as
"conformal" if it changes lengths but preserves angles (think of
stretching the plane by a uniform amount in all directions), and
the study and application of conformal transformations is an
active area of research in geometric analysis that depends upon
and contributes to the development of solution techniques for
nonlinear partial differential equations.